ADVANCE Institutional Transformation Award: An Initiative for Transforming Climate and Opportunities to Foster Academic Diversity

The University of Texas at El Paso (UTEP) proposes to implement an Initiative for Institutional Change with the goal to serve as a model for other institutions that desire to increase the representation and advancement of women, including underrepresented minorities, in academic science and engineering careers. Because of its talented faculty and Hispanic-majority student population, UTEP is the ideal setting to create, implement, and document interrelated processes for diversifying the academic workforce and contributing to the national goal of creating positive and sustainable change in academic climates.
To increase the total number of female faculty, in particular those from underrepresented groups, in tenure-track and tenured positions, UTEP will establish an Initiative with three integrated and mutually supportive components: 1) a policy and recruitment process that formulates faculty support and retention policies, supports recruitment efforts, and provides research support; 2) a faculty development process that expands an existing faculty mentoring program for women, introduces a seminar series to help faculty develop plans for career success, and fosters synergy between tenured and tenure-track faculty; 3) a collaborative leadership process that works with departments to remove barriers to recruitment, retention, and advancement of women faculty by assessing departmental climates and sharing best practices that encourage diversity and promote leadership.
To sustain the components and provide for continuous refinement of processes, an Institutional Action Board will initiate and define change policies and offer advice on grant initiatives. A multi-faceted evaluation process will include both formative and summative self-assessments and review by an external Advisory Board. This innovative structure weaves together processes, relationships, and multiple lines of communication among all ranks of faculty and administration.
The five co-PIs bring broad leadership and coalition-building experience to the Initiative: Dr. Evelyn Posey is Associate Vice President for Academic Affairs, Dr. Elizabeth Anthony is the past President of the Faculty Senate, Dr. Tine Reimers is Co-Director of the Center for Effective Teaching and Learning, Dr. Ann Gates is Associate Chair of the Computer Science Department and Chair of the President's Advisory Committee on Diversity, and Dr. Patricia Witherspoon is Chair of the Department of Communication and Director of the Sam Donaldson Center for Communication Studies.
Through implementation, documentation, and on-going assessment of the Initiative, UTEP will contribute to a better understanding of how to create collaborative climates that result in greater diversity. The intellectual merit of the Initiative is the breadth of its integrative structure, involving university administration as well as coalitions of change agents at the individual, departmental, college, and institutional levels. In this process, decision makers at the "grass roots" drive institutional change. The Initiative is designed to promote a holistic view of faculty life, address the different stages of faculty careers from entrance into the academe to advancement to leadership positions, and to develop faculty for each of these stages.

The Initiative is designed for broad impact. It is a series of processes that includes involvement of all ranks of faculty as well as participation by individuals at the highest level of the institution. It is built with knowledge of universities' structures and interrelated processes that can be easily adapted to universities throughout the UT System and those around the country.